Collaborative Research: The Role of Precipitation, Sublimation, and Surface Fluxes in Cloud Transitions during Marine Cold-Air Outbreaks

When frigid air from the Arctic moves over warmer open waters, the contrast results in the development of clouds and precipitation. As the clouds move further away from the edge of the sea ice, they transition from organized rows to deeper clouds surrounded by cloud-free areas. This transition zone is important for weather at local and wider scales. This project will use existing field campaign observations and numerical modeling to study how precipitation impacts the transition due to the development of cold pools. The research will help to improve marine weather forecasting, benefit numerical weather model development, and provide training opportunities for graduate students.

Marine cold-air outbreaks (MCAOs) are significant weather events in the sub-Arctic region that impact the atmosphere well beyond their immediate footprint. The Cold-Air outbreak Experiment in the Sub-Arctic Region (CAESAR) field campaign was conducted to provide observations for the study of various aspects of the MCAO system. This project will advance understanding of the thermodynamic and microphysical factors that drive the transition of clouds toward the open-cell regime during MCAOs. Specifically, the project will investigate how precipitation generated within deepening boundary layers sublimates in the sub-cloud layer, producing cold pools that organize convection and trigger the transition. Airborne observations, including radar, lidar, cloud probe, and isotopic data will be combined with large eddy simulation (LES) modeling and a radar simulator to address hypotheses about the importance of environmental thermodynamics, the role of precipitation in cloud transitions, the role of sublimation in sustaining cold pool growth, and how various aspects work together to maintain the open-cell structure.